Shipboard Scientific Support Equipment for 2010, R/V Blue Heron

ABSTRACT

21 July 2010
Proposal Number: 1013400
Institution: University of Minnesota Duluth
PI: R. Ricketts

This proposal requests one Shipboard Scientific Support Equipment (SSSE) item for the R/V BLUE HERON; namely a new integrated, GPS-based navigation system. This item will enhance navigational safety and provide greatly improved science support capabilities.

Broader Impacts: The University of Minnesota supports federally funded scientific research on the Great Lakes and routinely exposes graduate and undergraduate students to the marine sciences. The R/V BLUE HERON is scheduled to complete over 60 NSF sponsored days in 2010.